Modular Representations of Finite Groups

Abstract for award of Jon F. Carlson DMS-0401431

Title of Project: Modular Representations of Finite Groups.

The project is an investigation into the representation theory and
cohomology of finite groups over fields of prime characteristic. The Principal
Investigator is particularly interested in the homological properties of
representations which underlie the basic module theory. He will continue
working on the classification of certain specific types of modules that
play an important role in the larger category theory of modules, and also
to look at the general structure of the cohomology rings. Carlson and his
collaborators have shown that many facets of the module category for group
algebras are controlled by the group cohomology. The proposed work would build
on this foundation. Professor Carlson plans to continue his development of
computer algebra systems for experimentation with modules and homomorphisms. Of
particular interest is the development of algorithms for studying homological
properties for finite dimensional algebras. The PI intends to expand his
collection of programs for the computation of group cohomology and other
aspects of the module theory. Other projects involve connections with
the representation theory of algebraic groups and the general theory
of group extensions.

In basic terms the Principal Investigator will look at certain types of
algebraic systems together with the actions of operators. Such a system
is called a module and it might have many dimensions in the sense of
depending on many variable. The operations may represent something like
the geometric rotation of points on a space. The project will concentrate
on the classification and properties of modules whose associated operators
come from a group or algebra. This means that the operators have a preset
collection of interactions with each other. A significant part of the
project is the development of computational techniques and software for
analyzing the structure and properties of modules. Groups of transformations
on modules and spaces are basic objects in modern mathematics and arise
in many applications of the mathematics.